International Biometric Conference to be held December 13-18, 1998, in Cape Town, South Africa

PI: Lynne Billard
Proposal Number: DMS 9730906
Project: International Biometric Conference - Cape Town

Abstract:

The International Biometric Conference is the biennial meeting of the
International Biometric Society, a Society dedicated to the "advancement
of biological science through the development of quantitative theories and
the application, development and dissemination of effective mathematical
and statistical techniques". Members and conference participants are
concerned with the cross-disciplinary and interdisciplinary interface of
the theoretical and application oriented real-world problems. This
proposal requests partial support for ten U.S.-based individuals from
academic and nonprofit institutions to participate in the International
Biometric Conference to be held in Cape Town, South Africa, on December
13-18,1998. About one third of those supported will be those with an
official capacity and two-thirds will be new researchers especially those
traditionally underrepresented groups such as women and minorities.